Equilibrium and Nonequilibrium Statistical Theories of Turbulent Geophysical Flows

The research project applies modern methods in analysis, computation
and probability to the modeling turbulent flows arising in geophysical
fluid dynamics. Specifically, the projects investigates statistical
theories of coherent structures in turbulence, which in a model
atmosphere or ocean usually take the form of long-lived, large-scale
jets and vortices. The approach builds on recent developments in the
equilibrium statistical theory of such structures, which has now
matured to the point that it can be justified mathematically,
implemented computationally and applied succesfully to geophysical
models. A prime example is the recent model of the zonal jets and
vortical spots in the atmosphere of Jupiter, whose predictions agree
remarkably well with observational data. In light of these
developments, the goals of the project are two-fold. First, the
equilibrium statistical theory of coherent structures is elaborated
for increasingly realistic geophysical models, such as multi-layer
quasi-geostrophic models and shallow-water models. The physical
implications of the theory are investigated by computing families of
equilibrium structures and deriving nonlinear stability theorems for
them. Second, a novel approach to statistical closure is developed
from the corresponding nonequilibrium theory. Unlike traditional
closure schemes for fluid turbulence, this new methodology derives
macroscopic equations for some specified resolved variables by
conditioning random paths of microstates on the ensemble-averaged
dynamics for those resolved variables. A combined theoretical and
computational investigation of this approximation to nonequilibrium
behavior is undertaken for some prototype problems. In the context of
model geophysical systems with damping and driving, this approach is
envisioned as a general procedure for deriving effective subgrid-scale
parametrizations of unresolved eddies.

Turbulent fluid flow remains one of the unsolved puzzles of physical
science. A better theoretical understanding of turbulence is needed
as a basis for the computational simulation of almost all natural
fluid motions. This is especially true of geophysical fluid flows --
the motions of the Earth's oceans and atmosphere -- which involve
complex motions over a wide range of scales, from meters up to the
planetary size. Every modern computer code used in weather
forecasting or climate prediction requires special, but often
unreliable, assumptions about how the small-scale turbulent motions
affect the computed large-scale behavior. The research conducted in
this project addresses the general issue of modeling a complex fluid
flow -- a mathematical prototype of an atmosphere or ocean -- in such
a way that its predominant large-scale features can be captured
reliably without resolving the full complexity of its small-scale
motions. In particular, the work seeks to develop the mathematical
and computational tools necessary to predict the behavior of modeled
geophysical fluid systems which exhibit organized features on large
scales but disordered and random motions on a range of small scales.
To do so, the project draws on sophisticated techniques from
statistical physics to construct theoretical models of complex systems
of this kind, and thereby to provide efficient and reliable methods
for computing their expected or most probable behavior. A recent
example of this approach is the remarkably successful explanation of
the persistent jetstreams and vortices, such as the Great Red Spot, in
the atmosphere of the giant planet Jupiter, which for the first time
shows quantitative and qualitative agreement between mathematical
theory and NASA spacecraft observations. In the context of Earth's
atmosphere and oceans, such theoretical models and computational
methods can used as building blocks in predictions about the long-term
trends in the ocean-atmosphere system.